Non-Asian Minority Students in the Science Pipeline at Highly Selective Institutions

9353821 Elliot The selection of a science/mathematics/engineering major, and persistence to a degree in that course of study, will be examined in the entire cohort of 5320 students entering Dartmouth, Brown, Yale, and Cornell college programs in 1988. In the statistical analysis of the cohort, particular attention to a number of factors antecedent to college admission and present during the college experience. Among those selecting scientific fields (1625), there will also be a deeper investigation on an almost case-by-case basis, through questionnaires and interviews, of background, motivation, college experience, institutional factors, career aspiration, and the like, among minority students, both those who persisted in their course and those who did not.